Machu Picchu: Unveiling the Mystery of the Incas

This project will provide for a national tour of a 5,000 square-foot exhibit about the great Inca archaeological site of Machu Picchu, and will give a national public audience the opportunity to view one-of-a-kind and seldom exhibited Inca artifacts, while also learning about archaeological science through engaging interactive exhibits and displays. The exhibit demonstrates how understanding the past through science has made it possible to determine the purpose, activities and the nature of daily life on a royal Inca estate. Laboratory research is at the core of the visitor experience, which will include osteology, paleopathology, astronomy, stable carbon isotope analysis, faunal analysis of animal bones, compositional and structural analysis of metals and ecological analysis of the flora and fauna of the Machu Picchu National Researve in Peru. Project funding will also create a Website including a virtual exhibit tour, a self-guided tour of Machu Picchu and web-based archaeological science curriculum for classroom use. The larger project also includes an international scholarly symposium entitled "The Archaeology of Inca Cuzco." The exhibit will open at the Yale Peabody Museum in January, 2003, and after six months, will travel to Los Angeles, Pittsburgh, Denver, Washington, DC and Chicago, before it returns to New Haven for long-term installation at the Peabody. The project will reach an audience estimated at well over 2,000,000 visitors, school children, and Website users.